Workshop in Molecular Neurogenetics; September 21-25, 1994; Bar Harbor, Maine

Recent technological advances have now made it possible to directly manipulate the mammalian genome and observe the effects of these experimental manipulations on the development of the nervous system. These advances include site-directed mutagenesis, positional cloning, and the analysis of the sequence and expression of genes. The mouse has become the mammalian model animal of choice in experiments of this kind and this workshop is designed to bring together investigators and students using this model system. The Jackson Laboratory, a renowned center for genetic research, which will be the site of the workshop, will provide a unique, "hands-on", learning environment. The organization of the workshop will offer the opportunity for the participants to engage in discussions concerning the latest technologies, their own work using these methods, and the potential impact of mouse neurogenetics on the field of Developmental Neuroscience.